RIA: Verifying the Temporal Behavior of Concurrent Systems

This research examines the question of how synchronization affects the temporal behavior of concurrent systems. The main problem addressed is that of determining tight bounds on separation times between system events. The concurrent system model used is a directed graph whose vertices represent events (synchronizations) and whose edges are annotated with delay information (bounds on computation times). The approach is to use algebraic techniques for manipulating an infinitely unfolded graph to implicitly examine the entire set of temporal behaviors. The research is extending the types of temporal analyses that can be preformed, as well as extending the classes of concurrent systems whose timing behavior can be efficiently verified. Applications in the area of asynchronous circuits are also being investigated.